RIA: Circuit-Level Hot-Electron Reliability

The overall objective of this Research Initiation Award grant is to understand how hot-electron degradation impacts circuit and system performance. In order to evaluate the reliability of different circuit classes, a hierarchical framework will be formulated. Within this functional classification, fundamental subcircuits, along with their key performance parameters and typical operating conditions will be identified. Using analytical modeling, numerical circuit and reliability simulations, and experimental measurements, the specific relationship between subcircuit performance and individual device degradation will be established. Based on these results, new hot-electron reliability criteria will be formulated that are based on circuit and system performance requirements. In addition, general guidelines will be created for designing hot-electron reliability into circuits. These goals will allow future VLSI circuits and technologies to be developed for maximum performance and reliability.